Intercellular Communication of Bovine Luteal Cells: Role of Cyclic AMP

This is a ROW Career Advancement Award. The goal of this research is to study the role of cyclic AMP (CAMP) in regulating intracellular communication during growth, differentiation and regression of corpora lutea. The immediate objectives are to study (1) ontogeny of contact-dependent intercellular communication among luteal cell types, and (2) effects of regulators of CAMP (e.g. luteinizing hormone, forskolin) on intracellular concentrations of CAMP and contact-dependent intercellular communication in selected luteal cells during luteal growth, differentiation and regression. %%% This is a Career Advancement Award which is one of the Research Opportunities for Women activities of the National Science Foundation. The main research interest of the awardee is the regulation of the function the corpus luteum of domestic animals, with emphasis on interactions among luteal cells during luteal growth, development, and regression. This is an important problem in reproductive physiology. This award will contribute to the advancement of the awardee's scientific career as well as to basic knowledge of the reproductive biology of domestic animals.